SECO Program Solicitation NSF 13-551: Microwave Nearfield Radar Imaging (NRI) Using Digital Breast Tomosynthesis (DBT) for Non-Invasive Breast Cancer Detection.

Early, accurate detection of breast cancer has long been a top medical priority. Recent clinical
success using Digital Breast Tomosynthesis (DBT) developed by our Massachusetts General Hospital
(MGH) research partners shows reduced false alarms relative to conventional mammography.
However, despite DBT’s enhanced detection capability, the 1% radiological contrast between
cancerous tissue and commonly-occurring fibroglandular tissue limits the unequivocal characterization
of diseased tissue. Alternatively, due to the relatively high contrast (10%) between cancer
and fibro-glandular tissue, microwave imaging has a strong potential to distinguish diseased
from healthy tissue. However, the often highly heterogeneous nature of breast tissue, where
fibroglandular tissue is randomly interspersed in the adipose background, results in disorganized
microwave images resulting in degraded image reconstruction.
In collaboration with our research partners at Northeastern University’s Gordon Center for
Subsurface Sensing and Imaging Systems (Gordon-CenSSIS) ERC, HXI proposes to fuse the DBT
X-ray imagery with microwave Nearfield Radar Imagery (NRI), and by building upon the image
extraction techniques developed by ERC platform technology, to significantly improve the cancerous
tissue detection rate.

The proposed activities will help the scientific/medical community to advance the knowledge
and understanding of the effectiveness of microwave NRI method in detecting breast cancer.
Our approach is based on the use of high resolution X-ray-based DBT imaging to obtain the
spatial organization of heterogeneous breast tissues and on coupling it as prior information
to NRI for 3-D reconstruction. This completely new transformative concept has not been previously
investigated, and it has the potential to overcome the limitations of a single-modality breast
cancer imaging technology.
This project brings together expertise from multiple disciplines:
1) HXI, world experts in radar design, will build the NRI sensor and antenna array;
2) CenSSIS will provide its platform technology algorithms to perform the sensing, imaging
and feature extraction of biological tissues and conduct phantom experiments; and
3) Consultants from the MGH will provide medical expertise.
Our approach, using new but validated imaging systems, allows for rapid transition to industrial
product development. The project furthers the ERC’s strategic plan through the application
of translational research for commercialization, with appropriate licensing of CenSSIS’ IP
to HXI. Additionally, the NRI/DBT system has the potential to expand HXI’s portfolio of marketable
microwave and RF products.

The broader impacts of this project are multifaceted, including improving breast cancer detection
rates, minimizing the cost of treatment by reducing the number of false-positive screenings
and preventing patients from going through the anxiety that callback examinations create.
Today, mammography allows 10-15% of cancers to go undetected and present themselves within
one year. In the United States approximately 45 million mammograms are performed annually
with false positive rates of 8-10%. This equates to more than 4 million callback examinations
per year. With the global market growing at a CAGR of 15.4% developing better imaging systems
is a high priority, in terms of women’s health, emotional toll, and medical costs.